Engineering Education for Inclusive Design

There is growing consensus in engineering that a fundamental change is required in the
education of future engineers to ensure that they be well prepared for their roles in the
21st century. The demands relate both to their success in the job market and to their
responsibilities as inventors and innovators of powerful tools and technologies that are
increasingly permeating all aspects of our society. In addition to strong technical
capability and management skills, future engineers need to develop the understanding and
skills needed to design products and services that can serve the diverse needs of different
countries, cultures, and peoples.

In response to an increasing global economy and marketplace, the changing
demographics in our society and workforce, and government requirements for product
accessibility, industry is increasingly developing more inclusive approaches to design.
Inclusive design of technology means developing systems flexible enough to serve the
broadest possible range of users. Curb cuts, for example, were originally designed for
wheelchair users, but parents with strollers, bicyclists, youth on skateboards, and senior
citizens benefit from them, too.

The proposed project is a collaborative effort between Rose-Hulman Institute of
Technology (RHIT), Innoventure, the Education Development Center (EDC), and the
CPB/WGBH National Center for Accessible Media (NCAM). The overall goal of this
project is to develop and broadly disseminate curriculum materials and activities that
facilitate the integration of inclusive design concepts into undergraduate engineering
curricula. To accomplish this goal, the Engineering Education for Inclusive Design
Project will undertake two major activities:

(1) RHIT faculty members, in collaboration with staff members from EDC and
NCAM, will develop, implement and formatively evaluate case-based approaches
towards teaching inclusive design concepts and skills to undergraduate
engineering education students. Project staff will develop case studies of
inclusive design projects and design instructional activities to accompany the case
material. The case materials and activities will be incorporated in several
different engineering courses at RHIT, evaluated for their impact on students, and
revised based on the results of the pilot tests.

(2) The inclusive design case materials and activities will be broadly disseminated
both among faculty at RHIT and nationally among other engineering schools
through a variety of means: (a) summer faculty workshops hosted by RHIT that
will introduce participants to the case-based approach towards teaching inclusive
design; (b) through the Engineering Case Library sponsored by the American
Society for Engineering Education (ASEE) and housed at RHIT in print and
electronic formats (world wide web); (c) and through papers and reports,
including proceedings of the summer faculty seminars. These publications will be
disseminated nationally in print and electronic formats to schools of engineering,
professional organizations, industry councils, and foundations.